Development of a Dynamic Cell Surface Imaging System

This proposal requests funds for the development of a dynamic cell surface imaging system. Specifically, the principal investigator proposes to capture three-dimensional information defining the form of a cell surface in digital form and use it to compute a perspective view of the cell surface. The resulting images depict surface topology directly, appearing much like scanning electron micrographs. This technique will be extended along several dimensions. Although, currently the time resolution of the technique is limited to 0.5 s by the low signal-to-noise ratio and fixed scanning rate of conventional video cameras, this can be overcome. The useful depth of interference reflection microscopy (IRM) will be increased by at least ten-fold by computing relationships between monochromatic images at different wavelengths. Methods will also be devised for combining IRM with other image formation modalities. Computer graphics products will be employed to decrease the computing time, costs, and complexity of computer-enhanced IRM. The development of such a technique is likely to lead to new knowledge concerning cell behavior.//